Continuous Production of Alkaloids from Immobilized Catharanthus Roseus

Although the indole alkaloid ajmalicine, obtained from Catharanthus roseus, is not an important product in the U.S., it serves as a useful model for the development of an "enabling technology" for the efficient production of potentially more important compounds, such as taxol. Previous work has shown that combining four treatment strategies can result in a 50-fold increase in the extracellular production of ajmalicine. These four strategies are: (1) elicitation; (2) production medium development; (3) calcium alginate immobilization; and (4) in situ adsorption with XAD-7 resin. They interacted synergistically, and were accomplished in batch reactors. Attempts with repeated batch cultivation revealed difficulties in sustaining a high level of production. This work seeks to answer the following questions: (1) what factors cause the loss of productivity and alterations in cell physiology during prolonged culture; and (2) is continuous high-level production using the combined four strategies possible?